Electric Space: Exploring our Plasma Universe

9453798 Dusenbery The Space Science Institute of Boulder, Colorado in partnership with the Franklin Institute Science Museum and the Electric Producers Research Institute will develop a 3000 sq. ft. traveling exhibit entitled Electric Space: Exploring Our Plasma Universe. Visitors to the exhibit will be introduced to the physics of the sun and the polar aurora. They will learn about the effect solar variability has on technology and humans working in space. The exhibit is divided into seven sections: Space is Not Empty; SkyWatchers; Plasma: the Fourth State of Matter; The Dynamic Sun; Planet Earth: a Great Magnet; Reaching Toward the Starts: the Heliosphere; and The Cosmic Connection. Its design is guided by the desire to create a total immersion environment that will allow visitors to explore the many realm of the plasma university from Earth's upper atmosphere to distant galaxies. It is the developers intention to demystify science by concentrating on process rather than facts, to create a stimulating informal learning environment, to reach a diverse audience, to motivate young people to pursue science as an interest and a career, and to have the exhibit serve as an interface between the scientific community and the general public. In addition to the exhibit, supplemental curriculum modules using an inquiry-based approach will be developed in cooperation with the Science Discovery Project at the University of Colorado. These materials will provide teachers, students, and parents the opportunity to explore the concepts presented in the exhibit. An extensive evaluation plan will be carried. The exhibit will open at the Maryland Science Center the summer of 1995. It will then travel to nine major US cities reaching an estimated two million adults and children who represent a great diversity of ages and education an ethnic backgrounds.